Manufacturing Technology Learning Modules: Integrating Mathematics and Technology Education Curriculum

This project will develop materials that are used with existing CAD software, developed by Microcompatibles under an NSF SBIR grant. These materials will be used in technology classes and, later, in math classes. The software creates a block on the screen which, through the use of easy to learn commands, can be cut and drilled to make a part. The student sees the part being cut on the screen and can zoom in and measure different areas of the part. Once the instructions for cutting have been completed, they can be sent by network or modum to a shop in which the part is actually made and sent to the student. This will help students learn 3-dimensional visualization and integrate technology and math curriculum.